SGER: National Mathematics Standards and Educational Equity

Anthropological research from the early 1960s helped educators focus their attention on teaching and learning as a sociolinguistic process. Teachers were asked to become more sensitive to the speech style differences of their minority students. Educational reform initiatives applied the findings from sociolinguistic research on cross-cultural and multi-ethnic classroom settings and broadened participation structures to create educational equity among diverse groups. Similar sociolinguistic assumptions can be found driving the current reform of mathematics education led by the National council of Teachers of Mathematics (NCTM. The NCTM standards emphasize communication skills so that all students can become mathematically literate. This study focuses on how the NCTM standards attempt to achieve educational equity through a prescribed restructuring of classroom communication and discourse patterns. However, critics of the sociolinguistic approach to educational equity have argued that broader socioeconomic and racial issues prevent some minorities more than others from full participation in school. This study follows a dual course. Using a sociolinguistic framework, it approaches language usage within the immediate setting of the mathematics classroom. Using an ethnographic framework, it examines the broader historical, political, and economic contexts within which the classroom and its students are situated. A comprehensive sociolinguistic model of elementary school mathematics discourse will be constructed which will expand the anthropological and sociolinguistic notions of context of situation and functions of language. In addition, this study will address what educators, teachers, and taxpayers need to know about a.)the cultural and linguistic diversities of students, b.)the underlying sociolinguistic assumptions used by the NCTM standards, c.)the feasibility of the NCTM national mathematics standards, and d.)the efficacy of national educational reforms that aim to achieve educational by relying on strategies to restructure classroom communication and discourse patterns.